Collaborative Research: Systems and Algorithms for Paralleland Distributed Symbolic Algebraic Computation

Fundamental issues in large-grained parallel/distributed symbolic mathematical computation shall be explored. The overall goal is the effective parallelization of symbolic algebra in a variety of parallel architectures. For this, a version of the Maple system using C/Linda shall be employed as will a small-grain parallel version of the SAC2 algebra system. The final system and library shall be put in distributable form for researchers interested in parallel symbolic mathematical computation.